Geometric Aspects of Algebraic Topology

DMS-0204080
Po Hu

In this project, the investigator intends to consider a
circle of ideas in algebraic topology and its interactions
with other areas of mathematics. One point of entry to
these ideas is Real-oriented homotopy theory, which uses
the complex conjugation action on the complex cobordism
spectrum to approach homotopy groups of spheres. The method
used here is a case of descent, which appears also in
Voevodsky's homotopy theory of algebraic varieties. In this
direction, the investigator is interested in algebraic
cobordism, the algebro-geometric analogue of complex
cobordism. Another closely related idea is that of Verdier
and Grothendieck dualities, both in algebraic geometry and
in equivariant homotopy theory. Yet another related but
different kind of duality is Koszul duality. Using this
duality, the investigator, jointly with collaborators,
proved a version of Kontsevich's conjecture on Hochschild
cohomology of k-algebras. This in turn is related to the
question of deformation quantazation in mathematcial
physics. Another area into which Koszul duality enters is
the string topology of Chas and Sullivan, which gives
another connection between algebra and homotopy theory.
The investigator is also involved with another project
related to physics, namely constructing geometric models
of elliptic cohomology.

Topology is the study of spaces that can be deformed
continuously. In part, this proposal seeks to better
understand maps between such objects by ``stable''
methods, i. e. considering a sequence of objects of
all higher dimensions at once, and by using certain
summetries upon them. Similar methods can also be used
to study more rigid geometric objects, for example in
algebraic geometry the solution sets of systems of
algebraic equations. This leads in turn to the
study of algebraic structures on an abstract level.
Finally, the related idea of string topology considers
not just a space itself, but structures on the space
consisting of loops in it. In particular, this is
important to string theory in physics, which sees
the universe as composed not of point-like particles
but of loop-like ``strings''.